A Finite Difference Approach to Pseudospectral Methods

Pseudospectral (PS) methods are high-accuracy alternatives to finite
difference (FD) and finite element methods (FEM) for the numerical solution
of PDEs. They are particularly effective for solving convection-dominated
equations over long times and in relatively simple geometries. Both the
algorithms themselves and the analysis of them have traditionally been
closely tied to expansions in different classes of orthogonal functions.
The recent book "A Practical Guide to Pseudospectral Methods" (by the
present investigator) notes that a large body of generalizations,
enhancements and insights can be gained by viewing PS methods instead as
special cases of FD methods. Several such opportunities were explored under
the grant DMS-9706916. Building on these experiences, we will now introduce
radial basis functions (RBFs) as an additional component to be integrated
with PS schemes. Although computationally quite costly, the spectral
accuracy of RBFs, combined with their extreme geometric flexibility, would
seem to make them ideally suited to complement PS methods in the vicinity
of irregular boundaries. To realize this requires much research regarding
the basic features of RBF approximations, as well as research on issues
related to interfacing them with PS and FD methods.

Pseudospectral (PS) methods were first proposed in the early 1970's (in
connection with meteorology and turbulence modeling). They have since been
shown to be extraordinary effective for high-accuracy calculations in
numerous other fields, such as computational electromagnetics and nonlinear
waves. Strategically important application areas include simulating the
radar scattering from airplanes, the electrical interference between
components on computer chips, and the transmissions of signals in optical
fibres. The main weakness with PS methods has been the difficulty to apply
them in complex geometries. Some of this has been overcome in recent years
(usually by splitting a complicated domain in simpler parts, and then
applying some suitable computational means for coupling of the subdomains).
A quite different and highly promising approach will be introduced and then
explored under this grant. This involves combining 'classical' PS methods
with the geometrically extremely flexible approach known as radial basis
functions (RBFs). This has never been attempted, and the research falls in
the 'high risk, high gain' category. Success is by no means certain, but if
it happens, it could have a major impact, particularly on computational
electromagnetics in applications such as simulation of radar scattering /
stealth properties of objects.